Engineering Research Equipment Grant: Solid State NMR Spectrometer

Solid state Nuclear Magnetic Resonance (NMR) reveals quantitative information about local bonding configuations and molecular motions in solids. NMR of liquid samples is a well developed technology, and is used on a routine basis in chemical laboratories. NMR of solid samples is a much newer technique. Because or its fairly recent emergence, a great number of problems have yet to be addressed with solid state NMR. Because of its unique capabilities, NMR holds enormous promise to help answer these problems. Funds are requested to construct an NMR spectrometer. The system and its subcomponents are a dual channel, spectrometer double heterodyne system, with a wide bore (100mm) 4.7 Tesla magnet. The hydrogen nucleus resonance frequency is 200 MHz. Finally, the cost of rf components increases with frequency. Constructing a spectrometer with a maximum frequency of 200 MHz decreases the cost relative to higher magnetic field systems without hindering the experiments we wish to perform. In-situ NMR spectroscopy of chemical processing, hydrogen diffusion, and heat treatment of materials will require the construction of a special probe, which will contain gas tubing, heating elements, and thermocouples. An instrument will be built for less than one-half of the cost of a commercial instrument of comparable specifications.